REVSYS: Systematics of the Batrachospermalean Contorta Clade (Rhodophyta)

Abstract

Molecular data have revolutionized our understanding of red algae. The freshwater genus Batrachospermum does not form a natural group and new genera need to be described. Enough data have been gathered for a subset of taxa, the Contorta group, to be described as the first new genus. The project objective is to circumscribe all species. Collaborators will collect in numerous areas worldwide. Key taxonomic characters will be photo-documented and molecular data will provide an evolutionary framework. A web-based database will make the findings available to the public and serve as a template for future studies.

The Contorta group inhabits tropical areas where our knowledge of stream biota is sparse. This research will result in a better understanding of rare taxa and identifying diversity 'hot spots.' Many species have been described from a single stream or a limited geographic area, but it is uncertain if this is due to high endemism or lack of systematic knowledge. Findings will point to high diversity areas, likely dovetailing with those for fish and invertebrates, since the Contorta group is food and shelter for aquatic organisms. The database will make the Contorta group more accessible for stream biologists and natural areas managers. Graduate students will be trained in field and laboratory research.